Fracture Testing Technology for Advanced Ceramic and Cementitious Matrix Based Composites

This award is made to study the use of nonlinear fracture mechanics in the failure of ceramics and concrete. Post cracking force displacement behavior and toughening mechanisms will be investigated.